Symposium entitled "Polymeric Nanomaterials," Sonoma, California, November 17-20, 2002

The ACS Division of Polymer Chemistry is sponsoring a three-day meeting entitled, "Polymeric Nanomaterials," in Sonoma, California, during the period of November 17-20, 2002. The organizers are A. D. English, B. L. Farmer, and R. A. Vaia. The conference has an outstanding collection of speakers from the U.S., Europe and Japan and anticipates a total attendance of approximately 150 people. They expect that 25 of these attendees will be graduate students and post-doctoral associates. Fees for the students have been discounted by 65% ($425 discount). The PI's request support in the amount of $3,000, to partially offset the expenses associated with underwriting graduate students, post-doctoral associates and younger faculty.
***